ROLE: Closing the Race Gap in Math and Science Achievement through Improving Parental Involvement in the Course Selection and Placement Process

The purpose of this project is to enhance African American parental involvement with high school student children by developing skills and strategies for effectively managing the educational careers of their children. It would create a capacity for collaborations with the schools that service African American children by developing the social and organizational infrastructure for continued parental involvement in educational careers. It seeks to increase enrollment and success of Black students in higher-level mathematics and science courses to diminish the race gap in math and science track placements. It uses a quasi-experimental design to implement a series of community workshops designed to enhance knowledge, skills, and strategies for managing placements of children in science and math tracks.

The research would create an intervention designed to change the outcome of students. It would conduct ethnographic work to map successful pathways to enrollment in higher-level math courses. It would use findings from these studies to implement workships within the Black communities, and conduct statistical analysis of the growth in achievement as a result of the reduction in course taking.